(SCREMS): Enhancement of Scientific Computing Equipment: Research in Applied Mathematics and Computation

The Department of Mathematics at Southern Methodist University will purchase a highshared memory machine. . The equipment and software purchased with this grant will be used for five research projects involving seven faculty and five graduate students. These projects are: dynamics and instabilities in semiconductor lasers; modeling multiphase contaminant flows in porous media; parallel software for two-point boundary value problems; continuation methods for analyzing chemical pattern formation and multiscale methods for integral formulation of elliptic and parabolic equations.